Power of Analysis

Abstract
Chang

This proposal is for partial support of a international conference, to be held
at Princeton University on May 4-8, 2009. The conference will focus on the work of Charles Fefferman. In keeping with the breadth and influence of Fefferman’s work, there will be speakers from a wide variety of fields in analysis and with applications for problems in several complex variables, PDE, geometry, dynamical system and mathematical physics. There will be an emphasis on the global over view of the power of analysis on mathematics in general, and also the interaction between analysis and different areas of mathematics and the role of this interaction in recent and future research directions. Specifically the purpose of this conference is:
• to disseminate the major results in analysis and the tools developed in analysis from the last decades.
• to assess the effect of these results on the development of mathematics and to discuss focus areas for the future.